Advanced, Automated Manufacturing and Processing Technicians Program

This project is to enhance advanced, automated manufacturing and processing education at the College of the Canyons by aligning, expanding, and upgrading three manufacturing technology related programs: Manufacturing Technology, Electromechanical Systems Technology, and Welding (automated robotic and laser). It is based on a comprehensive needs assessment that included review of the following key factors: national and state training needs; emerging economic trends; new technologies and applications; skill gaps and shortages; opportunities for collaboration and leveraging of resources; the needs of students; and the needs of the community. The project features strong industry partnerships; new and upgraded curriculum for three AS degrees and certificates; curriculum development/adaptation for the Fast Track training format; curriculum development for customized incumbent worker training; upgraded laboratory facilities supporting all three programs; improving the K-12 STEM pipeline; work-based learning; outreach and recruitment; student assessment and support; faculty and teacher training; and evaluation.

The project's impacts include: 1) improving the STEM pipeline from high school through community college and to the university level resulting in increased student access to, and success in, STEM majors; 2) integrating upgraded technologies in targeted curricula to foster a qualified manufacturing workforce; and 3) preparing a new generation of engineers and technicians to meet the needs of manufacturing employers for highly skilled workers that are essential for U.S. industry to remain competitive.